Solvent Sublation (Floto-Extraction) for the Removal of Law Solubility Hydrophobic Compounds for Aqueous Systems

The objective of this project is to establish rate determining steps and rate data for model evaluation of an adsorptive bubble separation technique called solvent sublation for removal of hydrophobic compounds from water. The process has been found to be of some promise as an advanced wastewater treatment process for removing hydrophobic compounds of low aqueous solubility and low vapor pressure from the aqueous phase. Laboratory experiments will be conducted to elucidate the effects of co-solutes and co- solvents upon the sublation of chlorinated aromatic compounds, polychlorinated aromatics, polynuclear aromatics and chlorinated pesticides. The method will be extended to include ionic compounds such as chloro-and nitrophenols which are more soluble in water. Results will be compared against currently available mathematical models of solvent sublation. A new method of generating air bubbles called colloidal gas aphrons will be considered and evaluated as an alternative to sparging. This is expected to provide information that can be used in increasing the efficiency of conventional bubble aeration processes. Results of this research may prove to be applicable for use in engineering design of a process for removal of organic substances from water and wastewater. Target substances include the polychlorinated biphenyls and other nonpolar hydrophobic chemicals, of significance in contamination of surface and groundwater.